Doctoral Dissertation Research: Degree semantics in Washo and cross-linguistic variation

Washo is a Native American language spoken in the Lake Tahoe area of California and Nevada. It is highly endangered, with only a handful of elderly native speakers left. Washo makes use of two strategies for expressing comparison of objects (cf. English: John is taller than Mary): conjoined comparison, where two independent clauses containing antonyms are juxtaposed; and locative comparison, where the standard of comparison is marked with a locative postposition or suffix. While both strategies for comparison are typologically quite common in the world's languages, these constructions remain under-studied in formal linguistics.

Under the direction of Dr. Christopher Kennedy, Mr. Ryan Bochnak will conduct primary fieldwork in the Washo community with some of the remaining speakers to investigate the semantic properties of the two comparison constructions in the language. Data will be collected through elicitation sessions where Mr. Bochnak will collect translations, narratives, and judgements on constructed examples to arrive at a more complete picture of comparisons and degree-related constructions in Washo. Of particular interest is the interpretation of scalar properties in comparison constructions, as well as their (un)acceptability with modifiers and measure terms. All data collected will be digitally recorded and transcribed by Mr. Bochnak. The analysis of the Washo data will inform the question of to what extent there exists a common semantics for comparison across languages, despite divergences in morphology and syntax.

This research follows a recent and growing trend of using data from under-studied languages to test semantic theories against a broader range of languages. In addition, this project will make a significant contribution to the permanent record of a highly endangered language, with the materials collected being made available to the Washo community in the form of annotated recordings of elicitation sessions in an online database.